Conference Support: Topical Meeting on Optical Amplifiers and Their Applications to be held August 6-8, 1990 in Monterey, California.

The grant is in support of a conference on "Optical Amplifiers" to be held August 6-8, 1990 in Monterey, CA. Topics include: - Fiber Amplifiers: - Rare earth doped fiber - Brillouin fiber - Power considerations - Noise characteristic - Performance characteristics, etc. - Semiconductor Amplifiers: - Semiconductor lasers - Power considerations - Noise characteristic - Performance characteristics, etc. - Systems Requirements and Applications: - Long haul - Ultra high speed - Subscriber, CATV - Switching/signal process - Sensors - Components: - Pump Lasers - Isolators - Couplers - Packaging - Stabilization Funds will be used to support travel for students and invited speakers.